GOALI: Control Design, Analysis and Implementation of an Adaptive Optics System for Astronomy.

9510449 Looze This proposal is in response to the Grant Opportunities for Academic Liaison with Industry (GOALI) program. The goal of the proposed project is to provide the opportunity for the Principal Investigator and a graduate student to closely work with Adaptive Optics Associates (including on-site interaction and laboratory work with technical staff members) to develop, test and implement control algorithms for an adaptive optics system for astronomy. This will be the first operational adaptive optics system outside the U.S. Air Force. The development of control algorithms for the adaptive optics system will require applying modern multivariable control techniques to a large dimensional (97 inputs, 240 outputs, and as many as 300 plant states), practical problem which exhibits significant uncertainties and nonlinearities. In addition, implementation issues such as the computational time for the control algorithm and continued operation when measurements are degraded or missing must be considered. Thus, this is an opportunity to test multivariable control system identification, analysis and design techniques on a large, real problem. In accordance with the guidelines of this program, Adaptive Optics Associates has made a commitment of $10,000 (non-federal funds) to support this effort. ***